Discrete Mathematics Laboratory

9451180 Menezes A computer algebra laboratory, consisting of Maple running on a network of SUN workstations, is being created which will enhance an undergraduate program in applied discrete mathematics. Discrete mathematics is an important subject for students in many disciplines, and essential for students majoring in such fields as applied mathematics, computer science, engineering and education. A primary focus of the project will be on projects to illustrate the contrasting nature of discrete and continuous problems. Students will be able to experiment with realistic examples thereby obtain a better understanding of the underlying mathematics.